Nonperiodic Sampling Theory, Deconvolution, and Wavelet Applications to Tomography

9971697
Walnut

This project will study applications of new results in sampling theory to
certain deconvolution equations. For example, it has been known for
many years that a function of two variables can be recovered completely
from its averages on three squares whose sidelengths are pairwise
irrationally related. Since convolution by characteristic functions of
squares is a standard model for remote sensing of images by arrays of
photodetectors (e.g., electronic cameras), this fact suggests that a high-
resolution image can be recovered from low-resolution images sensed by
arrays of photodetectors placed at three distinct distances from the image.
Recent results of the principal investigator and collaborators indicate a
strong link between the theory of sampling on unions of regular grids of
irrationally related sizes. Several aspects of this type of nonuniform
sampling are to be investigated. Specifically, (1) higher dimensional
sampling with applications to high resolution tomography and to
deconvolution from averages over rotated squares, (2) sampling for
functions bandlimited to circular domains with applications to
deconvolution of images blurred by photosensors with circular apertures,
and (3) higher order sampling with applications to deblurring when the
blurring function is a smooth spline. A second focus of the research is in
wavelet applications to tomography. The principal investigator and
collaborators have shown that the wavelet transform is a valid theoretical
and practical tool for analyzing local aspects of the Radon transform, the
primary mathematical model in CT. The principal investigator proposes
to continue this analysis by studying the recovery of edge information in
images directly from a wavelet-based edge analysis of their CT images.
This would have the advantage of constructing an accurate edge picture of
the original image without the loss of SNR inherent in any reconstruction
or backprojection scheme. The natural noise-reduction properties of
wavelets should also help in reducing noise in the measured CT data.

This research has two foci. The first is related to the problem of super-
resolution of digital images. Any digital black-and-white image consists
of individual pixels on which the image intensity is a fixed shade of gray.
In this case, features of the image at scales smaller than one pixel in size
are invisible to the imaging apparatus. For example, in a satellite image of
New York City in which the pixel size corresponds to one city block, it
will be impossible to distinguish different buildings in a given block. All
of the buildings (features) will be blurred into a single shade of gray on
that block. Such an image is a blurred version of a hypothetical "perfect
image." The goal is always to get as close as possible to this perfect
image. It has been observed that certain classical mathematical results can
be interpreted as saying that it is theoretically possible to take several
blurred images of different pixel sizes and combine them in such a way as
to recover the perfect image exactly. Perfect deblurring is not possible in
any realistic system but it is possible to significantly improve the
resolution in an image by combining several blurred images in a specified
way. The principal investigator has contributed to this program by
observing that the deblurring problem here described is actually very
closely related to the well-studied signal and image processing problem of
interpolation from samples. The principal investigator's work has
demonstrated that it is possible to provide very simple deblurring
formulas. The current research project focuses on finding practical
schemes to implement these formulas on computers. The second focus of
this project is on applications of the technique of wavelet analysis to
problems in tomographic imaging. The term tomographic imaging" refers
to devices such as medical CAT scanners that form very sharp (much
sharper than x-rays) non-invasive images of the inside of an object. Such
imaging techniques are also used in industrial applications such as
detection of cracks in metal structures. The principal investigator
proposes to study the recovery of edge data in images directly from a
wavelet-based edge analysis of their tomographic data. This would have
the advantage of constructing an accurate edge picture of the original
image without the distortion inherent in standard reconstruction schemes.